Superplastic Process Modeling and Material Characterization Study of Selected Metal Alloys

The primary objective of this project is to develop mathematical process models for selected superplastic sheet metal pressure (blow) forming operations. The rate-sensitive properties of superplastic metals make it imperative that the strain-rate during forming be controlled to optimize their forming charateristics. A controlled pressurization schedule is thus necessary for accurate process control. The purpose of the models is to predict: (a) the pressure-time loading cycle to maintain optimum forming conditions, i.e., maximum ductility and minimum cavitation, and (b) the thickness distribution in the formed part. Constitutive equations will be developed experimentally under both uniaxial and biaxial conditions for input to the models. Hydrostatic pressure requirements to suppress cavitation will also be studied. A new numerical procedure using membrane elements developed by the authors will be investigated as well as non-linear finite element methods. The alloys tested include selected Aluminum-Lithium alloys as well as 6A1-4V Titanium.